Submanifolds in Contact and Symplectic Topology

The focus of this award will be several central questions in contact topology. Contact topology studies a geometric structure on odd-dimensional manifolds, called a contact structure, that over the last twenty to thirty years has been shown to have deep connections with three- and four-dimensional spaces. The PI will continue his work classifying contact structures in dimension three and some special subsets of them called Legendrian knots. Such studies in the past have greatly illuminated the nature of contact structures, and this new work should continue that trend. In addition, the PI will investigate how contact structures are related to four-dimensional topology by studying their interaction with another geometric structure, called a symplectic structure, on four-manifolds. The PI will also continue his commitment to the education of undergraduate and graduate students and postdoctoral fellows.

The PI will investigate several fundamental questions in contact and symplectic geometry. A major goal of the work will be to advance the classification of tight contact structures on small Seifert fibered spaces. There has been a great deal of work on this program for about 20 years, and that work has significantly enhanced our understanding of the nature of contact structures. Through surgery techniques and new tools in Heegaard Floer theory and convex surface theory, the Principal Investigator will fill in many of the gaps in our understanding of contact structures on these fundamental manifolds and lay the groundwork for a complete understanding in the near future. In the process, the PI will classify Legendrian torus knots in tight and overtwisted contact structures on lens space, which is expected to reveal new phenomena. This work should also help us understand how various properties of a contact structure, such as Giroux torsion, fillability, and virtual overtwistedness, are related and behave under surgeries and cobordisms. The PI will also study symplectic fillings of contact manifolds and in particular, better understand when contact structures on small Seifert fibered spaces can be the convex boundary of a symplectic manifold with small topology (for example, being a rational homology ball).